Applications of Krein space operator theory

Abstract:

The proposal is concerned with operator theory and function theory
involving the generalized Schur and Nevanlinna classes and
two-isometries on Pontryagin spaces. A generalization of Nudelman's
problem in interpolation theory will be studied. In the classical
case, existence criteria were given by M. Rosenblum and the PI using
the commutant lifting theorem. The criteria imply a series of
classical interpolation results with both interior and boundary data.
The Ball and Helton generalization of the commutant lifting theorem
yields an extension of Nudelman's problem to the generalized Schur
class which has similar applications. New problems for boundary
interpolation and Hilbert transforms arise in the indefinite case and
will be studied in joint work with T. Constantinescu and A. Dijksma.
D. Z. Arov and the PI will study Darlington synthesis for
J-contractive matrix-valued functions in the unit disk. State spaces
now are Pontryagin spaces. The approach follows previous work by Arov
and also uses the factorization theory for pseudo-continuable
functions by Rosenblum and the PI. L. A. Sakhnovich and the PI will
study indefinite cases of direct and inverse problems for canonical
differential and difference equations by the method of operator
identities. A recent Ph.D. dissertation by C. Hellings obtains a
generalization of Richter's theorem on analytic two-isometries on
Pontryagin spaces. This area is new and includes a number of open
questions and possibilities for further developments.

The proposal is concerned with problems in areas of mathematics which
have traditional connections with engineering and control theory and
especially the design of stabilizing feedback controllers and passive
networks. The main problem of interpolation theory is to reconstruct
a function from partial information such as given values of the
function at specified points. Usually the data of a problem satisfy a
positivity condition depending on the class of functions under
consideration. The proposal will study a unified method to deal with
one class of such problems in which the positivity conditions are
replaced by weaker assumptions. The inverse problem of spectral
theory, which asks to reconstruct an operator from observed spectral
properties, is related to interpolation theory, and the effect of
weakening positivity will again be considered. Other problems are
related to the embedding of a passive system into a conservative
system: extensions will be considered in which systems contain active
as well as passive elements. Conservative systems correspond in some
sense to isometric operators, and another group of problems explores
generalizations of isometric operators in the absence of positivity.
The projects are in collaboration with colleagues in the U.S. and
Europe. Funding of the project will also provide support for an
undergraduate research program in the Mathematics Department of the
University of Virginia that matches students one-on-one with
mathematics professors for projects of approximately eight weeks in